Partial Differential Equations

This project is mainly concerned with the study of the regularity of
solutions of partial differential equations that arise in the theory of
several complex variables and on CR manifolds. In particular we plan to
study various properties of subelliptic multipliers and also
hypoellipticity when subellipticity fails. Related questions are Hoelder
continuity and real analyticity of solutions. We also will continue our
study of global regularity on CR manifolds using microlocal methods.

Partial differential equations arise naturally in physics, chemistry,
engineering, economics, and in several diverse areas of mathematics.
Sometimes these equations can be solved explicitly but more often they
cannot and, in that case, the problem is to find whether the solution
exists and if so to find various of its properties and to approximate
it. This is accomplished by means of estimates. Here we study estimates
for certain special fundamental partial differential equations but the
techniques we develop are applicable in much greater generality. The
basic concept that we use are "subelliptic multipliers" this is a tool
which converts the search for estimates into problems of algebra and
geometry. This concept has proved very effective not only in proving
estimates but also in the study of various algebraic and geometric
problems.